CISE Research Instrumentation: Research in Parallel Computer System Design using Workstation Clusters with High-Speed Networks

CDA-9529541 Psarris, Kleanthis Das, Samir, R. Boppana, Rajendra, V. The University of Texas at San Antonio Research in Parallel Computer Systems Design using Workstation Clusters with High-Speed Networks This award is for the acquisition of a cluster of four multiprocessor workstations to support several research projects, including the research on the design of architectures and compilers for distributed shared memory multiprocessors and on large-scale applications such as the design and implementation of parallel discrete event simulators. The proposed instrumentation provides a multi-granular parallel and distributed computing platform, where both tightly-coupled and loosely-coupled systems coexist. It interconnects four Sun workstations with an SCI (scalable coherent interface) based high-speed network. The SCI interconnect will provide low-latency message passing and shared memory support. The SUN workstations with Solaris OS support threads and high precision clocks. The low-latency inter-workstation communication and threads will be used to implement parallel architecture simulators and parallel discrete event simulators. Precise clocks will be used to extract message communication and shared memory traces from applications. These traces in turn will be used to evaluate the new architectural mechanisms through simulations. The shared memory support provided by the interconnect will be used to run the parallel code generated by a parallelizing compiler. Several benchmark applications will be compiled and run on the equipment to evaluate the effectiveness of various dependence analysis techniques.